Shipboard Scientific Support Equipment

9900269
Hawkins
This award to University of Delaware will provide equipment in support of oceanographic research on R/V Cape Henlopen, a research vessel operated by the university as part of the University-National Oceanographic Laboratory System research fleet. Specific equipment to be acquired includes a marine crane, a navigation receiver, a generator switch gear, keel coolers and modifications to transducer well and tanks. The shared-use equipment supported here will assist marine scientists conduct studies from R/V Cape Henlopen, particularly in the Atlantic Ocean along the east coast of the United States, during 1999 and future years.
***